Optically-accessible nuclear spin memories in direct band gap semiconductors

Nontechnical description

Quantum technologies show great promise for computing, communication, and sensing. Realizing this promise requires new materials that can store, process, and transmit quantum information efficiently. While existing solid-state quantum systems often provide either strong optical performance or strong electrical control, they rarely have both. Defects in zinc oxide, a widely studied semiconductor, have potential as a platform that combines long-lived quantum memories with optical and electrical functionality. This project seeks to establish atomic-scale quantum memories in zinc oxide while maintaining optical access for communication and readout. The research also advances understanding of defects and the electronic and optical properties of high-purity semiconductors. Results of the project provide new pathways toward scalable quantum information technologies. The project provides training for undergraduate and graduate students in quantum science and engineering and hands-on science activities for elementary school students through the University of Washington Science Explorers.

Technical description

This project investigates shallow donor defects in the direct band gap semiconductor zinc oxide as a promising platform for quantum technologies that can realize both optical and electrical control. The research focuses on indium and tin-lithium donors, both of which exhibit large binding energies and large hyperfine interactions, making them promising candidates for fast electron-nuclear spin transfer and long-lived nuclear quantum memories. The project determines the mechanisms limiting electron-spin and nuclear-spin coherence in implanted and in situ doped zinc oxide donors, establishes methods to initialize, control, and preserve nuclear-spin coherence, and demonstrates pathways toward entangling nuclear spins with photons via donor-bound exciton transitions. By combining optically detected magnetic resonance, advanced radio frequency pulse control, and isotope purified materials, this work clarifies how material purity, implantation damage, and electric-field noise affect coherence at the single defect level. A key innovation is the integration of electrical control, including Stark tuning, charge state control, and electric field driven nuclear spin control with optical functionality. This combination opens a route toward scalable multiqubit registers and electrically protected nuclear memories, extending concepts previously limited to silicon into a direct-band gap, optically active material.